Travel: NSF Student Travel Grant for 2022 Fourth Annual Symposium of Applications of Contextual Integrity

Researchers and practitioners across disciplines have drawn on the theory of contextual integrity to tackle privacy issues. The recent efforts include operationalizing contextual integrity and what it means, discovering contextual norms for privacy, capturing users’ privacy expectations in varied contexts, as well to analyze regulations and using contextual integrity to establish research ethics guidelines. Recognizing common interests and challenges, it is important to bring this diverse community of researchers using contextual integrity together to discuss what has been learned from the projects using this privacy theory and how to move forward to leverage contextual integrity for enhancing privacy preserving systems and policies.

This workshop assembles computer scientists, engineers, legal scholars, social scientists and ethicists to foster communication between the various communities of researchers and practitioners using the theory of contextual integrity as a framework to reason about privacy and use it as a common language for sharing of ideas. The workshop develops new collaborative interdisciplinary research partnerships around the theory of contextual integrity with existing communities in industry, academia, and government, and establishes a body of significant literature for future work on privacy enhancing systems. This workshop also facilitates interdisciplinary connections amongst privacy researchers in social science, law, computer science, ethics, and policy to produce more reliable and readily adopted privacy-enhancing technologies. The workshop broadens participation in computing by providing travel grant awards and in-person mentoring opportunities to a diverse set of students primarily from under-represented and marginalized populations.